Hispanic Engineering Scholarship Program

This project is awarding scholarships to academically talented but financially needy students and is supporting the scholars through a variety of structures and programs on campus. Students are being recruited from all academic levels including first-year students, transfer students, upper division students, and graduate students who are enrolled in one of the many engineering programs at the institution. Support structures for participants are specially geared towards the needs of the scholars to ensure their academic success and eventual graduation. The program includes faculty mentoring, helping students to develop employment interview skills, tutoring, and internship and research opportunities. Programs about graduate school admissions are also being provided to the scholars. The goals of the scholarship program are to increase student participation in student support services, to decrease the attrition rates for students, and to increase the number of engineering graduates.